TC: Small: Formalizing Operator Task Analysis

Computer systems are commonly coupled with human operators who add
hands, eyes, and judgment to the computer programming and its sensors
and actuators. The operators can be viewed as programming platforms
in their own right, where manuals, training, and system feedback
provide the programming. However, operators have unique platform
characteristics compared to computers, including, in particular, the
likelihood of making numerous and diverse errors. Hence systems that
rely on operators require a protection envelope representing an
engineered collection of system behaviors that prevent important types
of operator errors from leading to losses. Having a well chosen
protection envelope is crucial to the robustness of a system that
relies on human operators. This project formalizes operator task
analysis based on models, languages, and techniques created for the
formal analysis of concurrent processes and use this formalization to
specify and automatically prove properties of the protection envelopes
of systems that rely on human operators for their safe and secure
execution in specified environments. The project uses concurrent game
structures to provide a technical foundation for reasoning about
protection envelopes specified using alternating-time temporal logic.
Progress is validated with case studies for airport screening and
veterinary tagging protocols. Interest in this type of contribution
will extend beyond specialized areas like jet pilots and nuclear plant
operators to roles like: customers in ecommerce transactions or
automated retail checkouts, drivers in automobiles with new types of
computer control, managers of smart warehouses, factory floors, and
office buildings, and first responders in emergencies.